EPSCoR Graduate Fellowship Program (EGFP): Graduate Experiences for Future Leaders: Building Workforce Capacity in Resource Management and Mining

The National Science Foundation (NSF) EPSCoR Graduate Fellowship Program (EGFP) supports EGFP designated institutions/programs in EPSCoR jurisdictions by providing funding for graduate fellowships for new or continuing EGFP-eligible applicants. EPSCoR Graduate Fellowships support a total of three years of stipend and associated cost-of-education (COE) allowance for each NSF EPSCoR Graduate Fellow.

This award to the University of Nevada Las Vegas (UNLV) will support 15 EPSCoR Graduate Fellows, which will build capacity in research and graduate education at UNLV. Fellows’ research will utilize Nevada’s world-class geologic outcrops, mineral resources and water resource infrastructure to create new knowledge in topics relevant to water resource management, natural resources and mining, and will consequently build workforce capacity in these important sectors. This award will provide support for Fellows conducting research on specific topics or areas that align with the unique goals and programs supported by the Directorate for Geosciences (GEO).